Structural Complexity Theory

9302057 Book This continuing research project has investigated foundational issues in the theory of computation with emphasis on structural complexity theory. The study of the structure of complexity classes, reducibilities, and complete sets is part of the effort to develop a theory of resource-bounded reducibilities as an important portion of a more general theory of computational complexity. The research proposed here is based on the assumption that the notion of randomness is a potentially useful tool to learn about complexity theory. To a large extent the research is directed toward learning about unrelativized complexity classes (e.g., P, NP, PSPACE) by studying reducibilities computed in various ways and by studying properties of complexity classes specified by resource-bounded oracle machines. The amount of information that an oracle set can make available in a computation of an oracle machine appears to depend on the amount of information encoded in the set, the method of coding and decoding, the type of question that an oracle machine may ask, and the amount of computational power needed to generate the appropriate queries (e.g., does the ability to use more time allow for the generation of more useful queries?). There has been a growing interest in probabilistic algorithms (or machines) and randomness. Probabilistic machines incorporate randomness into their underlying logic, so that randomization is part of the internal calculation. Just as in the case of non deterministic machines, there are problems which probabilistic algorithms can solve much faster than is known to be possible by deterministic algorithms. Hence, these concepts have received a great deal of attention in computational complexity theory. The research proposed here presupposes that randomness is a useful tool with which to study complexity theory and is based on a collection of results that focus on properties of complexity classes specified by random oracles; these result s lead very naturally to similar questions about complexity classes specified by pseudo random oracles. ***